Engineering Research Equipment Grant: Workstations for Advanced Research in Computer Intergrated Engineering

This grant provides advanced computer workstations for use in research in non-manifold geometric modeling, tolerancing in computer-aided design, automated finite element modeling, advanced graphics systems, user-interface managers, CAD data management, and object-oriented animation.